Effect of Resistivity on Current Sheets in the Solar Corona

Current sheets provide an important physical mechanism for heating of the solar corona as well as more violent phenomena such as flares. Earlier work has demonstrated that the presence of a small but finite resistivity has an important influence on the formation of current sheets. This research is to be continued through in depth studies of the following topics: (i) Current sheet formation by "free" and "force" reconnection, (ii) role of helicity conservation, (iii) effect of current sheets on coronal heating by Alfven waves and (iv) effect of resistivity on complex topologies. These topics will be studies through both analytical and numerical means.